Understanding Self-Adjusting Data Structures

Self-adjusting data structures have considerable practical importance; they offer efficient performance and they are easy to code since they are not required to enforce structural constraints. This same lack of structural constraints, however, makes it difficult to predict the behavior of these data structures over a lengthy sequence of operations. Recently, and contrary to expectation, the widely used and highly practical pairing heaps data structure has been shown to require more than constant amortized time for the decrease key operation, thus underscoring the need to have better methods for anticipating behavior of self-adjusting data structures. The major focus of this project is the development of such methods. Goals for this project include (i) reaching a definitive understanding of the pairing heap data structure, utilizing both analytical and experimental methods; (ii) the development of a formal theory of self-adjusting data structures, placing them at one end of the spectrum of graded structure with emphasis on obtaining an understanding of the performance limitations that are incurred as structure is diminished; and (iii) an exploration of non-linear amortized analysis for the purpose of predicting the frequency and severity with which time consuming operations can take place.